Industry/University Cooperative Research Activity: The Mechanics of Flow of Particulate Media

The experimental wedge-shaped hopper of the gamma ray densitometer is reconfigured to permit measurements of the bulk density of flowing material in the neighborhood of the discharge slot. The data set assembled from measurements of a commercial standpipe are compared with the theoretical predictions from an improved model of the vestical standpipe. Combined analytical and experimental research continues on standpipe flow, hopper discharge, and rheological characterization of granular materials.